Research Initiation: Three-Dimensional Vortex Dynamics Simulations of Jets and Interacting Wakes

Numerical simulations will be carried out to predict organized vortex structures in three dimensions relevant to plane wakes and round jets. Issues to be addressed are stability mechanisms and three-dimensional interactions for these vortex structures. The numerical procedure is based on Lagrangian vortex dynamics. These methods do not introduce numerical grid effects. The focus is on mechanisms which might ultimately be used to control the stability of wakes and jets.